Stellar Occultation Studies of Giant Planet Systems

9322115 Elliot Stellar occultations can probe ring systems and atmospheres of planets in the outer Solar System with spatial resolutions of a few kilometers -- about a thousand times better than the resolution of any other Earth-based method. Drs. James Elliot and Heidi Hammel will observe the highest quality occultations by the giant planet systems that occur during the period 1994-1998. They will use these data to investigate various physical characteristics of rings and/or atmospheres of Uranus, Jupiter, Saturn, Titan, and Neptune. The first year of the award includes support to involve undergraduate students in the research effort.